TCUP Planning Grant: University of Alaska Fairbanks - Northwest/Chukchi Campus

Abstract

TCUP Planning Grant: University of Alaska Fairbanks
Northwest & Chukchi Campuses

The purpose of this planning grant is to conduct an assessment of STEM
infrastructure, student needs in science, technology, and math, plus transitional
factors in student advancement. Based upon this information an institutional plan
for STEM programming will be developed and a STEM implementation grant
written, including tools for evaluation and student tracking.

The planning period will occur for 12 months and will include four goals with
overlapping timelines:

Assessment of STEM Infrastructure (October 01, 2003 - March 31,
2004)

Assessment of Student Needs (October 01, 2003 . March 31, 2004)

Assessment of Transitional Factors in Student Advancement
(October 01, 2002 . March 31, 2004)

Creation Of An Institutional Plan & Implementation Grant (April 01,
2004 . August 31, 2004)

The results of this planning grant will be the assessment of Northwest and
Chuckchi campuses ability to provide a 2-year STEM transfer program; an
assessment of Alaska Native student retention in science, technology, and math
coursework/programs; an assessment of high school to 2-year and 2-year to 4-
year science, technology, and math skill transition; and finally an institutional plan
for STEM courses and programs out of which a full TCUP grant proposal will be
written including the development of instruments for STEM program evaluation
and student tracking.